Enhancement of High School Faculty in Molecular Biology Theory and Laboratory Techniques

Valdosta State College will host a 3-year enhancement program in molecular biology for high school teachers. Over three years, 75 participants from South Georgia will take part in an intensive 3-week course. Hands-on laboratory experiments will include principles of enzyme action, principles of electrophoresis, DNA isolation from E.coli, separation of DNA and RNA using Sephadex, analysis of DNA fragments sizes, DNA fingerprinting, analysis of restriction enzyme patterns, characterization of supercoiled, nicked, and catenane forms. DNA sequence analysis and immunoelectrophoresis of proteins. Teacher participants will take a kit back with them to their schools to incorporate molecular biology techniques directly into their curricula. Over the three-phase program, lead high school teachers will assist with the course and provide feedback on their use of these techniques in their home schools. A network of participants will develop into a biology interaction group which will continue to support the on-going program with the assistance of Valdosta State College.